Purchase of a 400 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation Facilities Program will help the Department of Chemistry at the CUNY-Queens College acquire a 400 MHz spectrometer which will be used in the following research investigations: (1) The Interactions of Azaheterocycles and Their Metal Complexes with Nucleic Acids; (2) Natural Products Synthesis; (3) Synthesis of Lipid Analogs for Use in Studies of Lipid-Lipid Interactions in Membranes; (4) Stereochemical Effects in Transition Metal Ion Centered Dendrimers; (5) Mechanism and Design in Organometallic Chemistry; and (6) Synthesis and NMR of Labelled Amino Acids, Peptides, and Nucleoside Analogs. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.